Cellular and Molecular Mechanisms of Taste Reception

Monosodium-L-glutamate (MSG) and some 5'-ribonucleotides produce a unique taste, which is distinct from the classical taste qualities of sweet, sour, salty, and bitter. Although several different mechanisms, including direct stimulus modulation of ion channels and indirect effects mediated by G-protein-regulated second messengers, have been implicated in taste cell responses to different classes of stimuli, little is known about how MSG elicits a taste response. Recent studies in our laboratory suggest the MSG taste transduction may involve specific receptor proteins which, like ionotropic neurotransmitter receptors for glutamate, contain integral ion channels that open when glutamate binds to the receptor. Whole-cell patch-clamp recording and the Ca2+-sensitive dye, fura-2, will be used to characterize MSG-regulated currents and changes in intracellular calcium in taste receptor cells isolated from C3H mice, a strain capable of discriminating MSG from other taste qualities. The results of these experiments will generate fundamental information about glutamate signal transduction in taste cells and will contribute to our general understanding of receptor mediated processes.